Mathematical Sciences: Structured Deformations and the Microgeometry of Continua

9703863 Owen The proposed research is part of an ongoing project to incorporate into continuum mechanics in a systematic manner the effects of geometrical changes at small length scales. The approach employed here differs from many others, in that it enlarges from the outset the collection of deformations that a body can undergo to include non-classical "structured deformations." The present, "front-end" approach provides flexibility in modelling and gives simple and direct predictions of important phenomena such as yielding, hysteresis, and dissipation for a variety of microstructures. The key mathematical idea employed is that the limit of a sequence of derivatives of functions may differ from the derivative of the limit of the sequence of func- tions. The difference between these two quantities gives a concrete measure of the amount of deformation due to "disarrangements" at small length scales. Existing theories of crystalline solids, liquid crystals, polycrystalline metals, and granular materials introduce measures of such deformations via "internal variables" or "directors", e.g., plastic deformation, molecular orientation, or void fraction. Although these variables have natural physical interpretations, in standard approaches they must be accepted as primitive objects within a theory; for structured deformations, counterparts of these variables can be calculated directly as limits of averages of geometrical changes at the microlevel. The proposed research will provide precise definitions and useful formulas for kinematical quantitities such as "velocity and stretching due to slip" and "velocity and stretching without slip", will achieve new refinements of general balance laws and dissipation inequalities, and will obtain parallel refinements of specific constitutive relations that distinguish one material body from another. A principal challenge faced by applied mathematicians who model complex phenomena such as the bending of a metal bar, t he appearance of contrasting optical fields on a liquid crystal display, and the flow of sand through a hopper is that of incorporating into the mathematical equations the influence of the microscopic structure of each substance. Considerable success has been achieved in individual cases of technological importance, but there is lacking a clear and useful language for systematically including microstructure. As a result, shifting, say, from studies of deformations in a bar to studies of sand flowing through a hopper requires starting nearly from the beginning of the modelling process. The proposed research is part of an ongoing program to provide a new, relatively simple mathematical language that will permit a more efficient and economical procedure for modelling these and other phenomena. The initial successes of this program help to provide simple and useful answeres to questions such as why a paper clip springs back to a complex, curved shape when removed from a stack of papers and does not spring back to the simple, straight shape that it may have assumed early in its manufacture. The proposed research will continue the quest for a more unified and efficient approach toward understanding and predicting complex phenomena based on knowledge of microstructure.